2001 ACM MobiHoc Symposium Support

This proposal requests funding to support the 2001 ACM Symposium on Mobile Ad Hoc Networking and Computing (MobiHoc). The symposium will be held October 4-5, 2001 in Long Beach, California.